Collaborative Research: Hydroacoustic Monitoring of Seismicity in the North Atlantic

In February 1999 long-term monitoring of Mid-Atlantic Ridge Seismicity was begun between 15 and 35 degrees north using autonomous hydrophones moored within the SOFAR channel. The goal is to obtain a first-order understanding of the spatial and temporal patterns in overall seismicity, and the partitioning between magmatic and tectonic events at this slow-spreading ridge. The current grant extends the deployment of the current hydropone array for an additional four years, and makes the information more widely available to the ocean science community.